RIMI: Fiber Optic Sensors and Smart Materials

9353126 Maclin The proposed research will focus on combining the emitter, detector and passive modes electrically rather than geometrically in electro-optical materials. The research will involve modeling and fabricating SiC and Ge materials for devices to serve as active optical fibers and to achieve large-scale integration of optical switching. The effects of radiation on the operational characteristics of fiber optical-electronic systems will also be investigated. In a parallel study, electronic, band structure calculations will be developed to explain magnetism in semimagnetic semiconductors by using and extending the principle, band theory techniques used in metal systems. ***